Equivariant Tamagawa Numbers/Deformation Theory

This is a project in Arithmetic Algebraic Geometry comprising
two parts. The first part deals with the study of values of L-functions
of varieties (motives) over number fields. In previous work the investigator
and his collaborator have extended the conjectures of Bloch
Kato, Fontaine, Perrin-Riou to motives with (possibly noncommutative)
coefficients. At the same time they have established a precise link
between these conjectures and classical Galois module theory, thereby
generalizing various conjectures and theorems in this latter area to
arbitrary motives. With the conjectural picture firmly in place, the
main task now is to prove more cases. What seems within reach of
current techniques are Tate motives over number fields, CM elliptic
curves (with CM by non-maximal orders) and the adjoint of a modular
form (with action of the integral Hecke algebra). The last two are
currently looked into by students of the investigator. Equally within
reach seems to be a proof of the compatibility of the equivariant special
value conjectures with the functional equation of the L-function.
The second part of the project is a rather concrete question in deformation
theory (of schemes, vector bundles or representations of profinite
groups). Using the theory of the cotangent complex one can define
higher Kodaira Spencer maps and the investigator proposes to study
the injectivity of these maps. In degree 1 this is known and leads to a
criterion for smoothness of the deformation ring. The case of most
interest is degree 2 where a similar injectivity would lead to a simple
criterion for the deformation ring to be a local complete intersection.

This is a project in number theory which has been part of the mathematical
heritage ever since the Babylonians discovered that there can be triangles
with all sides of integer length and one angle of ninety degrees. By the
theorem of Pythagoras this gives integer solutions of an algebraic equation.
Modern number theory still looks for integer solutions of algebraic equations
but this search is informed and enriched by much deeper connections with ideas
from geometry and topology than the ones alluded to in this introductory
example. The theory of special values of L-functions is a case in point. While defined
by counting solutions of equations modulo prime number it turns out that values
of these functions can sometimes be expressed in terms of integrals of
differential forms, or volumes of certain lattices. Nobody knows exactly why such a relationship
should hold. The examples one can prove all seem to rely on some happy
coincidences, although they follow a pattern that leads one to guess ("conjecture") what
happens in general. This is much like the situation in an experimental science. The
investigator and his collaborator have generalized this picture to situations where the
system of equations has some additional symmetries and they now try to collect
further evidence for (or indeed falsify!) their conjectures. As far as applications are
concerned, number theorists would probably agree that L-functions are a key concept in their
field. On the other hand, number theory as a whole no longer needs to be defensive about its
applicability, with much of cryptography and coding, on the internet and
otherwise, being based on its results.